The Vertical Integration of Molecular Spectroscopy in the Chemistry Curriculum

Chemistry (12)
The purpose of this project is to implement a discovery-based approach in the chemistry laboratory curriculum through the vertical integration of molecular spectroscopy. Six experiments that utilize ultraviolet-visible or fluorescence spectroscopy are being adapted to incorporate the active learning strategies of various NSF-funded initiatives. These experiments are introduced into general, organic, and advanced chemistry laboratory courses. By building upon their experiences and knowledge for each successive experiment, students are exposed to molecular spectroscopy techniques and their concepts consistently throughout their college careers. This vertical integration approach allows students to retain their knowledge of molecular spectroscopy concepts and empower them to apply this knowledge to a variety of scientific applications and problems.